Mathematical Sciences: REU-Site: Oregon State University

This grant is a continuation of the Research Experiences For Undergraduates site that was run at Oregon State last summer. Although the Principal Investigator's plan to be flexible, they have also established some carefully defined research projects for the students. They will work individually or as teams on projects involving computer exploration of number theory, numerical and population dynamics, percolation models, and other similar projects. The projects are intended to introduce participants to methods of mathematical research and to emphasize the use of experimentation, computation, and teamwork as means of attacking complex problems. They also seek to give participants tools which are playing increasingly important roles in modern mathematics. Participants will work closely with the principal investigator, the co-principal investigator, a faculty associate and other members of the research staff. They will be exposed to diverse areas of mathematics through a seminar and special events. In particular a mathematician and educator form the University of Oregon will give a series of lectures, and participants will have the opportunity to attend appropriate seminars and lectures on campus.